World Ocean Circulation Experiment: Support for the U.S. WOCE Office

In this project, the PI's will maintain a project office for the US component of the World Ocean Circulation Experiment (WOCE). During the operational phase of WOCE, the office will provide assistance to the Interagency Panel, and staff support for the US Science Steering Committee and its subcommittees, and individual scientists. The principal tasks involve communication, both among US PI's and with the International Project Office, the Data Information Unit, and the WOCE Hydrographic Program Office. Annual budget requests for the entire US WOCE program and annual updates to the US WOCE Implementation Plan will be made.